Advanced Intelligent Control of Next Generation Vehicles

This SBIR Project will establish the feasibility of a neural network based advanced intelligent motor controller for fuel cell powered Next Generation Vehicles (NGV). The NGVs present control problems whose solution by conventional controller technology may present unacceptable technical, schedule, and cost risks. The neural network approach represents a revolutionary advancement to the field of vehicle control. The key objectives of this project are: to establish feasibility of a neural network based power control system for the NGV; to apply to 4 wheel, 4 motor vehicle configuration; to determine the optimal paradigm for NGV motor control; to determine optimal control by distributed vs. central control; to meet national goals of three-times fuel efficiency with marketable performance; and to plan and design for initial application to a bus in Phase II, then transition the controller to other vehicle classes in Phase III.